Mathematical Sciences: Numerical Simulation of Suspension Flow

In this project the principal investigator is proposing a new numerical method for the study of the behavior of solids suspended in a viscous fluid. The method combines finite difference approximations to solve the field equations with Lagrangian fluid markers to track the positions of the solid particles in the fluid. The suspended material is replaced with an appropriate force-density term in the equations of fluid motion. This method is capable of handling a large number of particles since there is no need to specify boundary conditions on the surface of each particle and since one set of equations obtains in the whole flow field. The behavior of particles suspended in a viscous fluid is an interesting physical phenomenon that has wide-ranging biological and technological importance. In this project the principal investigator will apply a novel numerical method in order to solve approximately the coupled fluid-solid equations that describe the motion of solid particles suspended in a fluid under realistic general conditions. The need for accurate simulations of such suspension flows arises in areas as diverse as medicine (blood flow), civil engineering (control of sedimentation in rivers) and design manufacturing (ceramics and composite materials).